Variational problems in optimal mass transportation and intersection homology theory

VARIATIONAL PROBLEMS IN MASS TRANSPORTATION AND INTERSECTION
HOMOLOGY

PI: QINGLAN XIA

ABSTRACT: The goal of the proposed projects is to study geometric
variational problems derived from optimal mass transportation as well as
from the intersection homology theory of singular varieties. The first
proposed project is building a model to simulate ``tree shaped'' objects
in nature, and apply it to optimal mass transportation problems. The
problems proposed here include building a transport theory of
rectifiable varifolds, finding connections of this model with other
problems, and extending this theory to more general spaces. The second
project concerns minimal surfaces that live in singular spaces such as
singular complex projective varieties under their intersection homology
groups. In his thesis, the PI gave a rectifiable currents' version of
intersection homology theory on stratified subanalytic pseudomanifolds.
He showed that there exists a modified mass minimizer (which is a
rectifiable current) in every intersection homology class. The
associated mass minimizers turn out to be almost minimal currents. The
mass minimizers the PI considered may intersect (in a controlled
fashion) the singular locus of the singular space. In this proposal, the
PI will continue his investigation on regularity properties of the
associated mass minimizers, and possible link with Hodge theory. One of
the main methods used in both projects is geometric measure theory.

The phenomenon of ``tree shaped'' path is very common in nature. Trees,
railways, airlines, lightning, the circulatory system, and neural
networks are common examples. The research of optimal ``tree shaped''
path not only expands the research area of mass transportation, but also
of both theoretical and applied interest. Biologists are currently
looking for a model to give a fundamental explanation for biological
scaling laws which are mathematical expressions of how organisms'
biology varies with their size. The model proposed in this research
might be the desired one. As Monge's mass transport problem is strongly
linked with many areas of mathematics, especially with partial
differential equations, it is also possible that this new approach of
mass transportation will find its applications in economics, biology,
image processing and some other subjects. Soap films are physical model
for minimal surfaces. These surfaces play an important role as a tool in
the study of topology, geometry and physics. The research of the second
project concerns global properties of soap films that live in more
general singular spaces and possible links to Hodge theory and optimal
mass transportation. It might provides some hint to the famous Hodge
conjecture.